Rational Points and Heights

The project addresses questions in Arithmetic Algebraic Geometry.
It is proposed to study the distribution of rational points on
algebraic varieties over number fields, and to explore the interplay
between global geometric invariants and arithmetic properties of
varieties. The focus is on proving potential density for families
of varieties, such as Fano varieties or Calabi-Yau varieties, and
on establishing asymptotic formulas for the number of rational points
of bounded height on equivariant compactifications of groups and
homogeneous spaces.

The proposed research ranges from
explicit numerical experiments to advanced problems in
modern and rapidly developing areas of mathematics.
This work will have a broader impact on the education of students
and training of young mathematicians, as there is a rich supply of
concrete questions and examples, consolidating our understanding of the
subject and leading to new structures.
Increasingly, applications of Arithmetic Algebraic Geometry
are spreading to vital areas of information storage, processing and
transmission; these applications rely on further advances on
fundamental problems to be addressed in this proposal.